Undergraduate Electrical Engineering Student Development Workstations.

A modern microcomputer laboratory consisting of nine stations will be set up to complement courses in microcomputers and microprocessor interfacing. Each workstation will consist of an IBM PC/AT and a Motorola 68000 emulator system. Students will be taught the whole concept of microcomputers and how they interact with real world devices, not just programming in either a high level or assembly language. The system as envisioned will also allow relatively inexpensive updating as more modern chips become available.